Integration of Fourier Transform Nuclear Magnetic Resonance Spectroscopy into the Chemistry Curriculum

This project significantly improves the teaching of modern chemistry by incorporating advanced Fourier-transforrm nuclear magnetic resonance (FT-NMR) instrumentation, theory, and techniques throughout the department curriculum. The speed of FT-NMR can be used as a tool by general chemistry students to analyze kinetic data. Organic students are exposed to the instrument's ability to obtain carbon-13 spectra as an aid in the identification of organic structures. Analytical students learn multidimensional FT theory and techniques and gain practical knowledge of the operation of FT-NMR spectrometers. Physical chemistry students use FT-NMR technology to investigate first hand the phenomena involved in spin-lattice relaxation and other electric and magnetic properties of atoms and molecules. Inorganic students can better analyze mrganometallic synthesis products using carbon-13 and COSY techniques. In addition, the students can remotely process and manipulate their FT-NMR data, freeing up the instrument for use by other classes. The addition of this equipment and its associated teaching techniques to the department better prepares students by creating an environment where chemical principles, theory, and analysis are learned through first-hand experience. *